NCLT: A Center to Develop Nanoscale Science and Engineering Educators with Leadership Capabilities

The Nanoscale Science and Engineering Education (NSEE) Center for Learning and Teaching (NCLT) would focus on the research and development of nano-science instructional resources for grades 7-16, related professional development opportunities for 7-12 teachers, and programs infused with nano-science content for education doctoral students. The Center would bring together educators and scientists from several areas of nano-science and engineering research to collaborate with science teachers and doctoral candidates in education on both the development of the resources and research on their efficacy. The PI has prior experience as director of the Materials World Modules project, an NSF-funded curriculum currently in use in several secondary schools across the country. Lead partners in the proposed Center are Northwestern University, Purdue University, University of Michigan, University of Illinois at Chicago and University of Illinois at Urbana-Champaign. Additional partners include Argonne National Laboratory, West Point Military Academy, Alabama A & M University, Fisk University, Hampton University, Morehouse College and University of Texas at El Paso. The additional partners will widen the geographic range of the project, expanding opportunities to reach a diverse and currently underrepresented population of graduate students, teachers and ultimately students.

STEM and Education faculty and researchers from the partner institutions would participate in interdisciplinary teams to address the Center's mission:

Provide national education leadership and resources for advancing NSEE
Create and implement professional development programs in NSEE
Use innovative ideas in learning to design instructional materials for grades 7-16

Conduct research relating to integration of NSEE into science, technology, engineering and mathematics (STEM) education.